Everyday Weather Project: Increasing Weather Awareness Through the Classroom Use of the Public Media

EVERYDAY WEATHER PROJECT: Increasing Weather Awareness Through the Classroom Use of The Public Media will develop and pilot test an innovative method for teaching weather in upper elementary/middle school classrooms and establish a permanent weather education implementation and communications network. The State University of New York College at Brockport, in partnership with the U. S. National Weather Service, and cable television's The Weather Channel, and in cooperation with the national newspaper USA Today, the National Earth Science Teacher's Association and the Commonwealth of Virginia Department of Education will help develop three teacher education modules and a group of master precollege teachers and supervisors of science to present the modules to groups of upper elementary and middle school teachers. The new teaching method is based on the study of weather from the perspective of the kinds of weather information available to the public by newspaper, television, and radio. An extensive pilot study will be conducted in an attempt to determine the efficacy of the teacher materials and strategies in teacher enhancement activities. A permanent weather education implementation and communications network will be established within the National Earth Science Teachers Association.